CAREER: Uncovering the interplay between replication and transcription fidelity

When left unrepaired or not repaired correctly, DNA damage can lead to mutations, cellular dysfunction, and human health problems such as cancer and aging-related conditions. This project will analyze the impact of DNA damage on the normal function of cells. It will provide information that helps us understand how DNA damage impacts cellular functions and human health. It will also provide information that could be used for developing new DNA damage detection technologies such as the detection of cellular dysfunctions associated with DNA damage. An important component of this project is the effort to improve the computational skills of undergraduate students by offering a course-based research experience at Mississippi State University. Another important component of this project is the effort to improve the computational skills of high school teachers, who can in turn pass these new skills onto high school students.

This project will tackle three specific objectives. (1) Identify the role of DNA and RNA damage to transcript fidelity. This part will use rolling-circle RNA sequencing (a technique allowing the removal of sequencing errors from RNA sequences) in several knockout yeast strains with reduced DNA-damage repair capacities as well as template DNA fragments that carry specific DNA damages. These experiments will reveal how DNA damage can result in the production of error-carrying transcripts. The rolling-circle RNAseq technique will also be used to test the hypothesis that high rate of C-to-U transcription errors observed across the tree of life result mostly from post-transcriptional damage to RNA molecules by measuring error rates in RNA molecules at increasingly longer times post transcription. (2) Determine the interplay between transcription and replication fidelity. Mutation accumulation experiments will be conducted in yeast and nematodes to quantify the mutation rate of organisms that carry error-prone RNA polymerases. This will test the hypothesis that error-prone RNA polymerases fail to trigger DNA repair pathways upon encountering DNA damage and refine our understanding of which proteins are involved in these DNA repair pathways. (3) Improve computational skills among biological sciences students. This objective will be accomplished at two levels: (1) the implementation of a “computational science” module for the Master of Science in General Biology for secondary school teachers (forming the educators) and (2) the offering of a Course-Based Undergraduate Research Experience (CURE) at Mississippi State University.